A Planning Conference on Future Directions for Electrical and Computer Engineering Research and Education, Hilton Head, S.C., March 28/29, 1985

A planning conference will be held on future directions for electrical and computer engineering research and education at Hilton Head, SC, on March 28-29, 1985. The purpose of the conference is to study and prioritize the research needs of electrical and computer engineering departments and develop realistic guidelines for enhancing their research and educational programs. The meeting will feature position papers presented to working groups, as well as general sessions for discussion of the major issues. A report on the recommendations and guidelines developed at the meeting will be prepared and distributed to electrical and computer engineering departments and other appropriate organizations. Attendees will include 150 department heads or their deputies.